Microscopic Theory of Hypernuclei, Award in U.S. and Indian Currencies

Description: This project supports collaborative work by theoretical physicists Dr. Steven Pieper at Argonne National Laboratory and Dr. A.R. Bodmer at the University of Illinois-Chicago, and in the area of microscopic theory of hypernuclei Dr. Q.N. Usmani at the Jamia Millia Islamia in New Delhi. They have previously made calculations of S-shell hypernuclei, A binding to nuclear matter and AP scattering data using simplified NN interactions, and have shown that a consistent description of these data can be achieved with AN and ANN interactions consistent with meson exchange models. The proposed work will combine this effort with work by Dr. Pieper at Argonne in developing a variational program for computing the ground-states of closed-shell nuclei using realistic two-and three-nucleon interactions. The combined programs will extend the closed-shell program firstly to allow for one or two A particles and secondly to allow computation of P-shell hypernuclei. The objective is to obtain a more detailed knowledge of the AN and ANN interactions. The problem of baryonic mixtures and AE coupling will also be studied. Scope: This project enables two highly qualified scientists, and their teams, to continue and expand collaborative research that had started several years ago and resulted in significant publications. The project will enable the Indian team to acquire capabilities for extensive mathematical analysis and calculations necessary for this work and to greatly contribute to the development of the theory of hypernuclei. The project is one in which the collaboration is especially beneficial to both sides.